CRI: Acquisition of Rice Physical and Biological Computing (PBC) Cluster

Abstract
Proposal: CNS 0454333
PI: Lydia Kavraki
Institution: William Marsh Rice University
Program: NSF 04-588 CISE Computing Research Infrastructure
Title: CRI: Acquisition of Rice Physical and Biological Computing (PBC) Cluster

Rice University investigators will acquire a 32 node computer cluster to advance research on representations, algorithms, system architectures, and new enabling technologies for solving complex geometric problems, particularly those arising from physical and biological sciences. The main collaborative projects of the Rice group are: (a) the modeling and manipulation of deformable objects that range from elastic objects to bio-molecules, (b) the development of robotics-inspired methods for the study of molecular motion and function, and (c) the reduced-dimension modeling of bio-molecular systems. The infrastructure will enable them to develop and use computational tools to represent, simulate, and interact with the physical world at all scales. Broader impacts of this project include its use in graduate training, supporting collaborations with Rice and the Texas Medical Center, and use in parallel and distributed computing topics courses. The facility will also support students at Rice participating in the CRA Distributed Mentoring project.